Computational Modeling of Platelet Aggregation and Coagulation and Development of Software for Biofluid Dynamics Problems

Fogelson
9805518
The investigator undertakes modeling and computational
simulation of platelet aggregation and coagulation. These are
the components of normal blood clotting and of the
life-threatening blood clots associated with vascular disease and
with the use of cardiovascular prostheses. The investigator and
coworkers continue to explore and refine their models of platelet
aggregation in small and large diameter vessels; continue
development of models of coagulation including the effects of
flow, transport, and surface reactions; and integrate the
platelet aggregation and coagulation models to form a more
comprehensive model of the hemostatic and thrombotic processes.
These models use coupled systems of nonlinear partial and
ordinary differential equations to describe interactions between
the blood's fluid dynamics, the transport of platelets and
chemicals in the blood plasma, the mechanics and chemistry of
developing aggregates, and the solution-phase and surface-bound
biochemistry of the coagulation process. The models present
substantial computational challenges that require development and
use of state-of-the-art numerical methods for their solution.
These include immersed boundary methods for fluid-material
interactions, high-resolution finite-difference methods combined
with Fourier-collocation spectral methods, immersed-interface
methods for handling transport in regions of complex geometry,
and parallel computation. This work involves extensive
comparisons between computational results and laboratory
experiments and is aided by collaboration with leading experts on
flow and thrombosis. The proposal is also concerned with
developing state-of-the-art parallel computational methods for
simulating biofluid dynamic flows like those involved in
aggregation and coagulation, and with including these
computational tools in a powerful and easy-to-use problem solving
environment that facilitates solving a wide range of complex
biofluid dynamic problems.
Thrombosis, which is the formation of blood clots within
vessels of the circulatory system, is the proximal cause of most
heart attacks and of other severe cardiovascular problems such as
ischemia and angina. It is also a major problem associated with
the use of blood-contacting prostheses such as mechanical heart
valves. The process by which these blood clots form is very
complex and involves many dynamic, sometimes competing, sometimes
mutually-reinforcing, biophysical and biochemical processes. A
major part of this project involves developing powerful
mathematical and computational tools for studying this complex
process, and using these tools to probe the factors that effect
the location, extent, and speed of formation of thrombi.
Computational modeling complements traditional experimental
approaches and provides a way to simulate complex dynamic events,
like the dynamic interactions among fluid, blood cells, clotting
factors, and blood vessel or prosthesis surface that lead to
thrombosis, that are beyond the reach of current laboratory
techniques. Such simulations can give new insights into the
basic mechanisms that control this important biological process,
and can ultimately help in the more rational design of
therapeutic interventions and prosthetic devices. Many other
challenging biological and biomedical flow problems have features
in common with that of simulating thrombosis, and so the
state-of-the-art parallel computational methods developed for
this project potentially have wide-spread application to problems
important to basic science, health care, and biotechnology. To
help realize this potential the investigators develop and
disseminate an easy-to-use software package that facilitates
using these computational methods to set up and carry out
simulations of important biofluid dynamics problems.